Computer Science Curriculum Improvement

This project supports curriculum enhancements in this institution's undergraduate mathematics/computer science program. With the equipment supported by this award, students in computer science are able to study advanced topics in computer science, to gain intuitive understanding of some mathematical principles through programming and to practice state- of-the-art computing techniques. The laboratory equipment that supports this project includes: DEC VAX 8250, controller, DECNET and various compilers and other system and application software. This award is being matched by an equal sum from the grantee.